NeTS-FIND: Greedy Routing on Hidden Metric Spaces as a Foundation of Scalable Routing Architectures without Topology Updates

A growing consensus among experts is that the routing system is
approaching a critical architectural breaking point. The Internet
Architecture Board has tried to identify the factors that limit
routing scalability and reached the conclusion that the most acutely
scale-limiting parameter of the current routing system is routing
table size, not so much for its memory requirements as for its
reaction to network dynamics. This conclusion is not surprising in
light of recent research demonstrating that no routing algorithm can
provide reasonable scalability bounds on dynamic Internet-like graphs.

These findings offer the ominous but definitive lesson: to scale
efficiently and indefinitely, we must learn how to route without
topology updates. Updateless routing seems impossible at first
glance, but Milgram's 1967 experiments showed that such routing is
in fact a reality of greedy search strategies in social networks.
Jon Kleinberg provided the first model formally demonstrating
efficiency of such greedy routing strategies. However, both the
Kleinberg model and its subsequent variations deal with graph
topologies vastly different from scale-free topologies of observed
complex networks, including the Internet.

This project proposes a new model of Greedy Routing on Hidden
Metrics, the GROHModel, which generalizes the Kleinberg model and
naturally yields scale-free topologies. The model employs the
concept of a hidden metric space (HMS) existing behind every complex
network, including the Internet. The project thoroughly investigates
the hypothesis that the observable scale-free structure of complex
networks is a consequence of natural evolution that maximizes the
efficiency of greedy routing on these HMSs.

The research agenda of the project is two-fold: (1) demonstrate the
existence of HMSs, thus validating the GROHModel premises; and (2)
build methodologies to explicitly re-construct the HMS for the
observable Internet topology, and more generally for any given
complex network. As soon the Internet's HMS is reconstructed, one
can use it to deliver addressing schemes for updateless,
indefinitely scalable Internet routing architectures based on greedy
routing strategies.

The intellectual merit of this project involves concerted
cross-fertilization across fields of networking, theoretical
computer science, physics, and mathematics. The project develops a
novel network modeling methodology that is elegantly generic in
nature, mathematically sound, and promises a solution to one of the
most challenging problems of future large-scale networking.

Since the Internet is just one of many complex networks that form
essential fabrics of human life, the potential advances of this work
are profound. Navigability of complex networks, i.e., efficiency of
targeted information propagation in them, has a fundamental
relationship to their structure. Proved faithful to reality, the
fundamental understanding advanced with the GROHModel may also result in
advances in understanding of structure and function of biological, social
and language networks.

Broader Impacts: the effects of scaling limits of conventional routing
on current networks include performance drops, loss of reachability and
high cost. As the networks grow, these are worsened. In present times,
operators and enterprises are attempting a transition to IPv6 in order
to allow virtually limitless sites to connect directly to the Internet.
This transition is expected to worsen routing strains. This project's
innovative reexamination of the routing solution space is relevant and
timely.